A Microcomputer Facility for Teaching Social Science Research Methods and Statistics in Political Science

This project establishes a facility to improve undergraduate education in political science. The system has the capability not only to hold the Political Science Department's extensive national survey and demographic data, but also to afford easy and simultaneous student access and use of the data in research methods and statistics courses in the department. Through the interactive use of the data base management system and the graphics capabilities of the statistical package, students gain experience in computerized data analysis.